Research in Signal Processing - Presidential Young Investigator Award

Two problems in the areas of image sequence analysis and multidimensional signal processing are studied. In the former, the problem to be considered is that of a rigid body undergoing unknown rotational and translational motion. Algorithms are developed for estimation of object motion parameters from a sequence of 20-30 noisy frames. In the latter problem, algorithms for a two-dimensional deconvolution problem with applications to image restoration are developed.